Mathematical Sciences: Analytical and Computational ProblemsMotivated by Equations Modeling Fluid Flow

This research will consider analytical and computational problems motivated by the time-dependent partial differential equations often used to model fluid flows. These equations frequently contain singularities in their solutions. New ways of classifying the smoothness of discontinuous solutions of scalar hyperbolic conservation laws will be studied. Also to be considered are adaptive and moving grid numerical methods for systems of conservation laws. This research should lead to more efficient numerical techniques which take into account the location and the geometry of singularities in solutions.